Collaborative Research: CSUMS: URGE to Compute

Ringland
DMS-0802994
Carbonara
DMS-0802964

URGE to Compute provides a year-long computationally
intensive Undergraduate Research Group Experience in the
mathematical sciences to an annual cohort of 12 undergraduate
mathematics majors. A collaboration of the University at Buffalo
(UB), Buffalo State College (BSC), and the Hauptman-Woodward
Medical Research Institute, the project brings together an
interdisciplinary group of 16 faculty researchers who have a
shared sense of the importance of computation in the mathematical
sciences, a record of successful supervision of undergraduate
research, and a commitment to increasing the effectiveness of the
preparation of students at UB and BSC for post-graduate education
and careers in the many fields that now demand a combination of
computational and mathematical skills. Prior to commencing the
full-year research experience, students take calculus,
differential equations, linear algebra, and a new sophomore
course in scientific and mathematical computing which was
developed with this project in mind and is offered to all math
majors. Special efforts are made to recruit minorities and
women, who are underrepresented in the mathematical sciences.
The year of research begins in the Spring semester of the
students' junior year with: a support course that provides
background on the theme that unifies all the research projects
for that year (e.g. stochastic processes in 2009); a team-taught
course on the tools and methods of computational research;
regular meetings with the research project mentor; and the first
part of a seminar that runs throughout the year. Research
continues through the summer, and students write an honors thesis
or a paper for publication in the Fall. Computational resources
available to the students include a 2000-node cluster and a
visualization laboratory at UB's Center for Computational
Research. Talks by eminent outside researchers are a feature of
the seminar, and students attend a national conference in an area
related to their research, disseminate their results at regional
meetings and local exhibitions of undergraduate scholarship, and
participate in outreach activities at local high schools. After
the year is over, in their final undergraduate semester, the now
highly trained students serve as teaching assistants in the
introductory differential equations course that is taken by all
mathematics, engineering, and science students.

Over the multi-year course of the project, the research
focuses on a wide variety of topics of societal importance.
These include optical fiber communications, agricultural pest
control, cryptography, medical imaging, and the behavior of
materials (from semiconductor devices to mudflows). The project
not only trains a select annual cohort in these vital areas, but
also reaches a substantial fraction of all math majors at UB and
BSC with a curriculum that is computationally enriched by the
preparation and support courses for the project, and a
departmental life that is enhanced by the seminars and the
exposure to peers engaged in research. The project is supported
by the MPS Division of Mathematical Sciences, the MPS Office of
Multidisciplinary Activities, and the EHR Division of
Undergraduate Education.